TV News: The Cutting Edge -- Annual Briefings for Television News Directors

The Scientists Institute for Public Information (SIPI), a non profit organization of scientists and media professional that works to strengthen reporting of science, will organize annual briefings for television news directors and producers by leading scientists during the next three years. Each year 35- 50 local news directors from across the country will meet face- to-face with nationally prominent scientists for two days of discussions of leading stories in science, health and the environment. Science is underreported on commercial television, and this targeted intervention has a substantial opportunity to directly improve the quality and quantity of science reporting by America's television industry. SIPI's Media Resource Service has developed an international reputation for its provision of scientific and technical sources for journalists. The prototype TV News Director's Briefing, held March 10-12 1989, demonstrated in a practical way the potential of the project, reaching 35 key journalists from 17 states. The briefings will be attended by a geographically distributed group of professional scientists and journalists who are well supported in their discussions by extensive pre-meeting work by SIPI staff. Extensive news coverage of the topics discussed will take place and be documented by SIPI staff. A continuing evaluation study by an independent contractor will analyze the impact of the briefings on the participants. NSF support will amount to 28% of the $660,000 project total.